Dynamical Systems, Denton 2003

ABSTRACT

PI: Mariusz Urbanski, University of N. Texas
DMS-0243806

"Dynamical Systems, Denton 2003"

This award provides substantial support for active research
mathematicians (both advanced and beginning) with limited means of
support to attend and participate in the conference Dynamical Systems,
Denton 2003. The conference is designed to provide an opportunity for
leading experts in the fields of ergodic theory, topological dynamics,
smooth dynamical systems, holomorphic dynamical systems, one-dimensional
dynamics, combinatorial ergodic theory and Hamiltonian dynamical systems
to share their ideas with the research community. With only a
single speaker scheduled at any given time, the conference will also
give less renowned speakers and their ideas exposure to a wide audience.
The plenary speakers will be Krystyna Kuperberg, Carlangelo Liverani,
Rafael de la Llave Michael Lyubich and Lai-Sang Young.